Investigation of the Halloran Hills Detachment Complex, SE California, and Its Relationships to the Late Cenozoic DeathValley and Garlock Fault Zones

The southern part of the Death Valley area contains the intersecting Garlock and southern Death Valley fault zones and the tectonic boundary between the Basin and Range province and the northeastern Mojave Desert. The northeastern Mojave province, previously thought to not be extended, has recently been found to contain a west-rooting detachment fault system involving late Miocene strata in the Halloran Hills. This project is designed to provide the detailed maps, structural geometry and kinematic information of the detachment required to reassess the tectonics of the Mojave block and how the new information affects the late Cenozoic tectonic history of the region.